Development of an Electrical Machines and Drives Laboratory

The requirements for motion control and for high efficiency drives have increased dramatically in industrial applications such as automated manufacturing and robotics. The recent advances in power electronic devices, magnetic materials in electric motors, and in control systems theory as implemented with the use of microprocessors and VLSI circuits, have allowed the development of such drives. An improvement plan for the recently established laboratory in electrical machines and drives will shift the emphasis from the characteristics of isolated electrical machines to the concept of a drive consisting of a collection of hardware and software. The new equipment required for this project includes new types of electrical machines, modern power electronic drives (rectifiers and inverters), accurate sensors for measurement and control, and computers to control the experiments and collect and analyze data. With this equipment, the experiments in the laboratory will allow the student to study the drive characteristics and use knowledge from such diverse areas as energy conversion, digital systems, or control theory to analyze and design a motion control system. These equipment will be also used for the laboratory section of the power electronics course.